Research Experiences for Undergraduates: Mathematical Research at Lafayette College

This research site will lead undergraduate research programs in several areas of mathematics. These areas include algebra, applied analysis, combinatorics, geometry, knot theory, financial mathematics and mathematical games. For eight-week periods in each of the summers 2003-2005, students will work intensively in teams on appropriate research projects. Results of successful projects will be published in peer-reviewed journals. Women and minorities are encouraged to apply to the program.